NSF Young Investigator

9357637 Kepler This is a National Science Foundation Young Investigator Award. The awardee is using a mathematical modeling approach to the problem of how immunoglobulin-producing lymphocytes (B-cells) develop in lymphatic tissue. Specifically, he will elucidate the process of somatic hypermutation within germinal centers by mathematical modeling studies. He will address mathematical problems arising in stochastic population dynamic models with many species interacting through competition for resources and random mutation, in which very small and very large populations coexist and which possess a non-trivial spatial structure. %%% One of the primary ways the vertebrate immune system defends against pathogens is by producing immunoglobulins (antibodies) (Ig) that bind specifically to molecular epitopes on the pathogen, thus marking it for destruction by the effector mechanisms of the immune system. The system has no prior knowledge of the foreign epitopes it will encounter, so it must have an efficient scheme for generating sufficient diversity to cover the space of all potential invaders. That scheme is now in part understood. Each Ig- producing B-cells assembles its Ig-encoding genes more or less randomly, with the resulting gene product (Ig) borne as a receptor on its membrane. Upon meeting a complementary antigen, the B-cell is stimulated to divide rapidly and differentiate into Ig-secreting cells. In warm-blooded animals, the immune system further sharpens its initial response through affinity maturation, during which a mutagenic process within the responding B cell populations is activated and targeted specifically at the Ig genes. Competition for antigenic stimulation provides selective pressure, and the average affinity of the responding population increases, often by two or more orders of magnitude. The immune system retains a memory of its encounter through progeny "memory" B-cells, so subsequent challenges by the same antigen are met with a faster and stronger response than initially. This is the basis for immunization. These events (somatic hypermutation and development of memory B cells) occur physically within histologically defined structures called germinal centers (GC) which form in the peripheral lymphoid tissue after antigenic challenge. The goal of this research is to employ mathematical modeling and computer simulation to examine the process. The GC reaction is not only critical to the functioning of the immune system, but is itself a beautifully self-contained model of Darwinian evolution in miniature (and in vivo). The relevant genomes are small and the "fitness function" is measurable in a manifestly non-circular way. A thorough quantitative understanding of the GC reaction will thus provide insight into matters fundamental to general biology as well as to immunology per se. ***